RUI: Selectivity in the Dissolution of High-Molecular-WeightSolids in Supercritical Fluids

Selectivity in supercritical fluid extraction will be investigated experimentally. Solid samples will be placed in a small fixed-bed saturator through which a mixture of a supercritical solvent and a cosolvent are circulated. Analysis is by direct injection of the circulating supercritical fluid into a supercritical-fluid chromatograph. Several approaches to development of an adequate model will also be explored. Supercritical fluid extraction is a promising technology for the processing of various foods and pharmaceuticals since solvent residue is easily removed. This project will examine complications which arise when more than one component of a mixture exhibit significant solubility in the supercritical fluid and how the use of a cosolvent might modify the selectivity.